Optimization and Feedback Control in Sheet Metal Forming - the Intelligent Stamping Die

The purpose of this project is to develop a laboratory- scale, prototype intelligent sheet metal stamping die. The motivation for this effort is the need to reduce part failures during drawing and improve final product quality. Failure occurs typically by either tearing or wrinkling of the sheet. Conditions leading to part failure include either excessive or insufficient restraining force in the blank holder region. The intelligent die is intended to sense these conditions, and to take corrective action. Such action would consist of altering the level of the restraining force by adjustment of the drawbead penetration and/or the blank holder pressure. The creation of a real-time process control system for the intelligent stamping die involves several issues: Detailed, quantitative descriptions of the local tool-sheet interface forces acting in the relevant regions of tool-workpiece contact must be produced; the deformation of the unsupported sheet between the punch and die shoulder must be sensed and characterized; the deformation of the sheet by punch, die shoulder, and drawbead must be described. The failure of sheet metal forming processes industry is somewhat unpredictable, with many adjustments by technicians required before acceptable parts are produced. The project promises to automate this adjustment process and allow the die configuration to be varied while the part is being formed.